Scientific Computing Research Environments for the Mathematical Sciences [SCREMS]

The Departments of Mathematics and Applied Mathematics at
the University of Colorado will conduct research efforts
that will purchase two "compute engines", one for each of
two departments, that incorporate these advances. Among
advances in computing capacity two are crucial for the
problems of interest here: (i) increased size of memory now
allows for realistic computations of some physical phenomena
that evolve in time in three spatial dimensions;
and (ii) increased computational precision makes feasible a
new class of fast algorithms that were infeasible otherwise.

1) A goal of one project is the development of fast and
accurate algorithms for solving practical problems in
dimensions three and higher. The two main tools in this
development are representations with a low separation rank
(a numerical version of separation of variables).

2) A goal of a second project is prototyping new algorithms
and developing new models for moderate to high Reynolds
number flows.

3) A third research project, on the behavior of a granular
medium in two and three dimensions, draws on the classical
kinetic theory, extending it to the case of inelastic
collisions, and gives explicit expression for macroscopic
quantities such as stress and granular energy.

Scientific problems of immediate interest include:
(a) geophysical and astrophysical fluid flows, driven by
the competing influences of planetary rotation, variable
gravity, and magnetic forces; (b) granular flows, such as
occur in avalanches or sand-piles or landslides; and (c)
electromagnetic wave propagation near irregularly shaped
bodies. Aside from these immediate applications, a
longer-term goal is to train students to use these new
machines well. The University of Colorado recently
created two new graduate programs, designed to train
scientists and engineers in advanced computational methods.
These two machines will help to make these new programs
more effective.